Ethical and Professional Issues in Computing

This project is to engage undergraduate faculty in a set of activities that will prepare them to teach courses or course modules on ethical and professional issues in computing. Twenty-five undergraduate faculty from a diversity of disciplines and types of institutions are participants. They are required to do pre-workshop assignments; attend a 5-day workshop during the summer, participate in an on-line forum, and attend a two day follow-up meeting in February. The activities are designed to address pedagogical issues as well as subject matter. The subject matter topics to be covered include proprietary rights in computer software, privacy, responsibility and liability, hacking, risk and reliability, democracy, access, and autonomy, and professional ethics for computer professionals. The project responds to the growing need for faculty trained in this area as the accreditation requirements in computer science and engineering recommend coverage of "social, ethical, and professional issues in computing."